Characterization of Grain Boundary Structures in Amphibolite

Long-term Research: Characterization of Grain Boundary Structures in Amphibolite. This award recommendation is made under the Program for Long and Medium-Term Research at Foreign Centers of Excellence. The program is designed to enable young U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. The award will support Dr. Randolph Cumbest, under the sponsorship of Prof. G. V. Gibbs, both of Virginia Polytechnic Institute and State University, for a six-month visit with Prof. Alex C. McLaren, The Australian National University, Canberra, Australia. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, and a flat administrative allowance of $250.00 for the U.S. home institution.